Emai Prose Narrative Texts

9974044
SCHAEFER

This grant provides publication subvention for a narrative text manuscript for the Emai language of Nigeria. The narratives were assembled prior to grammatical and lexical investigations supported by NSF and were revised and updated subsequent to those investigations. As the only extant collection of oral tradition texts for Emai and its Edoid group, the texts will interlock with the grammatical and lexical documentation of Emai and will serve as reference tools for scholars from a range of research traditions.